High School Affiliates Connection Program

9417569 Hassler The Catholic University of America's School of Engineering has established a consortium of local-area high school that seeks to introduce scientific and engineering concepts early in the educational experience. It is envisioned that this program will promote engineering in the secondary schools, and provide a much needed educational tool by providing a high speed modem connection from each of the high schools (at present they include: Elizabeth Seton High School; Georgetown Visitation Preparatory High School; St. John's College High School; Gonzaga College High School; Bishop Ireton High School; and DeMatha Catholic High School) to the worldwide Internet through a mentoring program at the School of Engineering. Summer programs will provide teacher training on specific engineering software applications and on general knowledge and use of the Internet. This project represents a strong beginning to what should be a continuing effort in redefining the educational process in science and engineering.